U.S.-Venezuela Planning Visit to Plan Research on Interfacial Phenomena at the Universidad de Los Andes

0085068
Newman

This Americas Program award will fund travel and related expenses for a short-term visit to Venezuela by Dr. Ronald D. Neuman, Auburn University, Alabama, to plan, with his collaborator, Dr. Orlando J. Rojas, of the Department of Chemical Engineering, University of Los Andes, Venezuela, the establishment of a research program in the fundamental and practical aspects of interfacial phenomena.

The facilities and expertise's in heavy crude oil emulsions and foams of the Universidad de los Andes group and this expertise of the Principal Investigators in experimental measurements of interfacial properties of surfactant systems to do well for international cooperation, which may involve both faculty and graduate and undergraduate students at the two academic institutions.

***